Student Travel to STOC 2013

This project seeks to help support student attendance at the ACM Annual Symposium on the Theory of Computing (STOC) in Palo Alto, California, June 1-June 4, 2013, the 45th annual occurrence of this meeting. STOC, together with the IEEE FOCS meeting, are the premier conferences on the Theory of Computing in North America. In recent years the attendance at STOC has consistently exceeded 300 people. A large fraction of the attendees have been students, for whom the conference serves as a valuable educational experience, both as regards the technical content of the talks and the opportunities for networking that it provides.